Collaborative Project: "A Study of Magnetic Fields in Interstellar Molecular Clouds"

9419220 Troland Dr. Richard Crutcher, at the University of Illinois, and Dr. Thomas Troland, at the University of Kentucky, are continuing a long term collaborative project to observe the properties of magnetic fields in molecular clouds in the interstellar medium. The major effort will be to measure magnetic field strengths using the Zeeman effect. The observations will be interpreted by detailed comparison with theoretical models of the structure and dynamics of dense clouds. As a result, in the next few years one can expect a major expansion in our empirical knowledge of magnetic fields in dense clouds and their role in the fundamental astrophysical problem of star formation.